Genetic Structure of Sea Urchin Populations Across a Biogeographic Boundary

9415669 Burton PROJECT ABSTRACT The overall research objective of the proposed study is to determine the genetic structure of natural populations of two congeneric species of temperate water sea urchins: (1) the purple urchin, Strongylocentrotus purpuratus, and (2) the red urchin, S. franciscanus. In addition to the population genetic survey, the study will determine size- specific allozyme frequencies in several populations of sea urchins sampled three times over an eighteen month period in order to asses contemporary levels of interpopulation gene flow. The research seeks to fill two important questions in the understanding of the population structure of marine invertebrates: 1) To what extent are biogeographic boundaries reflected in the genetic structure of species which span the boundaries? and 2) Are patterns of genetic differentiation best explained by impediments of gene flow among specific populations, by ongoing natural selection, or by some combination of these processes? Analysis of sources of recruits to local populations and the viability of immigrants moving between populations is poorly understood in most marine populations. Yet such an understanding is essential to the effective management of marine biotic resources. The data from this study will be used to initiate an intensive population genetic analysis required to address the issues mentioned above. Such analyses are especially timely in the case of the red urchin, which currently faces intense predation pressure over much of the California Coast - from sea otters in central California and from human fishing activities in other regions. S. franciscanus now supports one of the most valuable invertebrate fisheries on the California coast.